The Mechanics of Fractal Fault Gouge

9304388 Sammis The PI will develop a micromechanical model for the friction of granular layers which incorporates comminution and rate and state-friction between the particles. This modeling will be guided by numerical simulations using a modified state-of-the-art soil mechanics program, and by recent laboratory studies on the effects of layer thickness and particle size distribution, adding complimentary experiments on the effect of normal stress. This work is motivated by seismological evidence relating fault zone width to fault stability, by recent advances in using seismic tomography and trapped modes to investigate the internal structure of fault zones, and by recent evidence for slow precursors to earthquakes on mature transform faults on the ocean floor which imply a significant scaling change of friction parameters between the laboratory and the field. ***